Dynamic Response Of Rock Bolts To Blast Loads

The objective of this research is to provide a theoretical and experimental approach to evaluate the dynamic response of rock bolts to blast loads. The effects of the frequency and wavelength of excitation and the material properties of the bolt and its surrounding rock on the dynamic response of the bolt will be studied to provide better rock stability in tunnels, underground mines, and man-made caverns.